CT-ISG: Pollution Resilience for Internet Caches

Aleksandar Kuzmanovic
Pollution Resilience for Internet Caches
Northwestern University
0627715

Abstract

The majority of requests for the Domain Name System (DNS) entries, web,
or even peer-to-peer (p2p) content in today's Internet are not served
by origin servers, but rather by intermediate caches. As such, they
pose an attractive target for malicious attackers. This project will
address the problem of cache-targeted DoS attacks on a broad front:
(i) by developing and studying a new generation of large-scale
cache-targeted pollution attacks, (ii) by designing fundamental
knowledge in creating deployable anti-pollution mechanisms, and
(iii) by designing and implementing counter-DoS solutions for three
imminent threats: web, p2p, and local DNS cache-targeted pollution
attacks.

The proposed pollution attacks pose a challenging problem for the
entire Internet community: (i) they are capable of degrading overall
network performance without flooding network resources; (ii) they
possess a dangerous level of indirection; (iii) they pollute the cache
with unpopular, rather than bogus files; (iv) they may operate at much
longer time-scales than classical DoS attacks operate and are thus
invisible for state-of-the-art counter-DoS schemes.
By leveraging data streaming computation techniques, our goal is to
attain a scalable solution by significantly reducing the amount of
state needed to maintain, and to make the detection system itself
resilient to DoS attacks. The involvement of industrial partners in
this project will accelerate the transfer of the research results
into operation. In particular, we will collaborate closely with the
UltraDNS Corporation which provides DNS services for over 20\% of
the world domains, including top-level domains as well as numerous
private organizations.